Oceanographic Technical Services, 2009-2011: R/V Atlantic Explorer

Funds are requested to support the continued Oceanographic Technical Services Program for the UNOLS registered R/V Atlantic Explorer in 2009, with out year requests for 2010 and 2011 to be negotiated after submittal of an annual report. The RV Atlantic Explorer is a general-purpose research ship owned and operated by the Bermuda Institute of Ocean Sciences (BIOS), a Bermuda-based United States registered, 501c, not-for-profit oceanographic research and education institution. The budget included with this proposal is for the first year of a 3-year continuing grant.